SBIR Phase II: Software-as-a-Service Customized Machine Translation for Commercial Language Service Providers and Their Clients

This Small Business Innovation Research Phase-II project develops advanced
technology capabilities for constructing and deploying client-adapted
automated language translation systems within commercial settings that are
used by globalizing enterprises and the language service provider companies
(LSPs) that provide translation services to such enterprise clients. The
developed technology leverages databases of previously-translated material in
order to produce client-adapted high-quality fully-automatic translations for
commercial language service providers (LSPs) and their enterprise clients.
This approach provides a scalable and less-costly solution for
creating and deploying client-specific customized Machine Translation (MT)
engines. Once deployed, these customized MT systems expand the capabilities
of clients to translate volumes of content that are not feasible to translate
using current methods.

The broader impact/commercial potential of this project lies in the impact
that it will have on the broad commercial translation industry. The
technology developed in the project is likely to significantly reduce barriers
to wide-spread adoption of MT technology by the broad LSP industry and their
enterprise client-base. The 2010 commercial translation market is a $26
billion industry, growing at a healthy pace. Current commercial MT offerings
are expensive and too difficult to deploy for most enterprises and service
providers. Free web-based translation services serve casual users, but do not
meet the quality and security needs of enterprises. The technology developed
in this project and the cloud-based delivery model support scalable,
easy-to-integrate MT services, which are highly attractive to a broad range of
potential clients. This approach will support cost-effective content generation into
multiple target languages at a massive scale, a capability that is essential
for globalizing US enterprises in order to compete in the information-rich
market place of the 21st century.